Establishment Change in Gender and Race/Ethnic Segregation and Access to Managerial and Craft Occupations, 1966-1999

This collaborative proposal would use establishment data from EEO reports to investigate changes in occupational segregation across nine broad occupational categories between 1966 and 1999. Preliminary analyses have documented the national declines in average within-establishment segregation by gender and racial/ethnic group across the 34 years of data. Average segregation by county and industry will be made available as a public use data file. The levels of and changes in establishment-level segregation will be analyzed to estimate the effects of factors at the establishment level (e.g., years since founding), the firm level (e.g., federal reporting requirements), the industry level (e.g., market competition), and the local area (e.g., minority concentrations and women's labor force participation).